Using Traditional Paradigms of Native Science to Structure Informal Science Education Materials -- A Planning Grant

Tapestry: The Institute for Philosophy and Religion will plan the dissemination of the results of a conference entitled "Stories from the Circle: Science and Native Wisdom." "Stories from the Circle," initiated in May 2002, brought together 32 native and non-native leaders in education in native and western science to discuss the range of ideas and practices that constitute Native Science and to consider how native ways of learning may be applied to informal science education. The proposed planning activity would plan multimedia dissemination of conference outcomes.